An Integrated Approach to Early Elementary Earth and Space Science

State science standards increasingly emphasize the importance of engaging K-12 students directly in natural phenomena and providing opportunities to construct explanations grounded in evidence. Moreover, these state science standards introduce earth and space science content in the early elementary grades. This creates a critical need for new pedagogies, materials, and resources for science teachers in all grades, but the need is particularly urgent in grades K-3 where teachers have had little preparation to teach science, let alone astronomy. There is also growing consensus that when learning opportunities in formal and informal settings are closely aligned, children's science literacy is developed in ways greater than either setting can achieve alone. The investigators will study if, how, and under what circumstances an integration of literacy strategies, hands-on inquiry-based investigations, and planetarium experiences supports the development of science practices (noticing, recognizing change, making predictions, and constructing explanations) in early elementary level students. This project will generate knowledge about how astronomy-focused storybooks, hands-on investigations, and planetarium experiences can be integrated to develop age-appropriate science practices in very young children (noticing, recognizing change, making predictions, and constructing explanations). This project is funded by the Discovery Research preK-12 program (DRK-12), which seeks to significantly enhance the learning and teaching of STEM by preK-12 students and teachers, through research and development of innovative resources, models and tools. Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.

Emergent research on the development of children's science thinking indicates that when young children are engaged with science-focused storybooks and activities that each highlight the same phenomenon, children notice and gather evidence, make predictions and claims based on evidence, and provide explanations grounded in the experiences provided to them. This project has two phases. In Phase 1, first and third grade teachers will be recruited. They will help identify specific learner needs as these relate to the earth and space science standards in their grade band, assist in the development and pilot testing of a prototype instructional sequence and supporting activities taking place within their classrooms and at a local planetarium. In Phase 2, the revised learning sequence and research protocol will be implemented with the same teachers and a new cohort of children. The mixed method research design includes video observations, teacher interviews, and teacher and student surveys. Data analysis will focus on science practices, connections across contexts (e.g., school and planetarium), and instructional adaptations. The project involves a research-practice collaboration between the Astronomical Society of the Pacific, Rockman & Associates, the Lawrence Hall of Science [University of California, Berkeley], and West Chester University.